A Three-Level Structured Laboratory to Support Traditional and New-Base Technology Experiments in Communications

The Electrical Communications Laboratory facilities at the University of Texas at San Antonio are being upgraded to extend and cover the traditional as well as new base technologies, such as fiber optics, satellite communications, high definition television, and digital audio recording. Three levels of experimentation are used. Initially, experiments dealing with the design of basic building blocks of analog and digital communications systems are investigated to provide familiarity with various signal processing techniques used in modern communications systems, instruction on how to operate communication laboratory test equipment such as spectrum and modulation domain analyzers, and exposure to some hardware/software implementation. The second level of experimentation involves small system design in which discrete or integrated devices are used to build small systems. Level three involves experimentation with a complete communications system such as a fiber optics network or a simulated satellite link like "MODEM" which can simulate an entire digital communications system and provide performance information similar to laboratory observations.